A Novel Environmental Sensor

This Small Business Innovation Research Phase I project proposes research and development efforts for a novel environmental electrochemical sensor based on unique nonaqueous electrolyte with a three electrode structure in the sensor cell. The nonaqueous electrolyte is nontoxic and noncorrosive it has large voltage window, low vapor pressure and high solubility for gases and vapors. The sensors have the potential for high selectivity, sensitivity, long life and multi-gas sensing capability. They can detect and monitor low concentrations of toxic gases such as nitrogen dioxide, hydrogen sulfide, ammonia, and volatile organic compounds like trichloroethylene, dichloromethane, tetrachloroethane, and carbon tetrachloride whose exposure can affect the health and safety of workers. Phase I efforts will investigate the properties of nonaqueous electrolyte solutions, using the electrolyte in the cell and scanning voltammetry. will conduct experiments on laboratory and prototype cells for the detection of toxic gases and vapors and multi-gas sensing capability.